The LHRH System and Reproductive Function

9310267 King Unlocking the mysteries of infertility will require a better understanding of luteinizing hormone releasing hormone (LHRH), a decapeptide responsible for the activation of the pituitary-gonadal function. Neurons in the brain that synthesize and release LHRH are dispersed as individual cells or small clusters of cells across broad region of the base of the brain which includes the preoptic area and hypothalamus. Dr. King believes that the positioning of LHRH neurons, although diffuse, are exquisitely regulated to facilitate integration of multiple internal and external factors to synchronize secretion and optimize reproductive success. Using a combination of anatomical, histochemical and molecular tools, she will continue to examine the heterogeneity of LHRH neuronal subpopulations. She will identify the specific groups of neurons that are synthesizing LHRH at time when it is important for the induction of ovulation. These neurons will then be reconstructed and studied in three dimensions using computer assisted analyses. The results from these studies will determine if a certain group of brain cells are critical to ovulation and reproduction. Dr. King will also examine a dynamic model whereby non-neural or glial elements influence the secretion of LHRH from ends of the nerve cells into the blood capillaries to enhances its transport to the pituitary gland. She will evaluate LHRH neurons/glial interactions in response to various hormone treatments that are known to influence ovulation. This work will significantly expand our understanding of the fine-tuning mechanism involved in LHRH release occurring under physiological conditions. The outcome of these studies should have critical impact on the understanding of infertility and will serve as an impetus for its treatment. ***